CSULA/USC Collaborative to Integrate Research & Education

California State University, Los Angeles (Cal State LA) and the University of Southern California (USC) propose to establish a Collaborative to Integrate Research and Education (CIRE) in the areas of controls and multimedia technologies. Under this collaboration the collective strengths of the Structures, Pointing and Control Engineering (SPACE) laboratory-a NASA supported facility within the School of Engineering and Technology at Cal State LA-the Integrated Media Systems Center, an Engineering Research Center at USC-will be combined. The major goal of the program is to increase the number of underrepresented minority students exposed to interdisciplinary research and cutting-edge technologies and prepare them for future employment and advanced degrees in engineering.